Structuration in Cross-Cultural Interaction: Yup'ik Eskimos and Non-Natives

9322092 HENSEL This anthropological research project seeks to explain the processes of cross-cultural communication as exemplified by the interactions of Yup'ik Eskimos and non-natives in Bethel, Alaska. The research has applications in both practical and theoretical ways. It can increase our practical understanding of how people learn to communicate in cross-cultural settings, and also contribute an analysis of the theories of practice/structuration, of relevance to anthropology and other social science disciplines. Research will be conducted through formal and informal interviews, participant observation and attendance at public meetings. ***